REVEL: Research and Education -- Volcanoes, Exploration and Life

The REVEL program was initiated by the Universiyt of Washington in 1996 with the intention of involving science educators in oceanographic research. The current proposal requests funds to support the continuation of this project during the summer of 1999. Eight science teachers will participate in a funded cruise to study the hydrothermal vent fields on the Endeavour Segment of the Juan de Fuca Ridge.